A Proposal for the Production of a Handbook on Local Alliances for Science and Technology Education

The Triangle Coalition of Science and Technology Education held a conference on Local Alliances for Science and Technology Education at the Wingspread Conference Center, Racine, Wisconsin. One of the most important outcomes of this conference will be a Handbook on Local Alliances, which will contain guidelines and suggestions for the development and operation of local or regional support groups. This Handbook will include descriptions of existing local organizations which could provide nuclei for local alliances, lists of cooperating professional organizations, examples of local alliance activities, budgets, sources of funding, do's and don'ts for the formation of such alliances, and suggestions for long-range alliance goals and strategies.